Connection of Carle Foundation Hospital and Clinics to the University of Illinois Campus Network and to the Internet

9318138 Mintel The University of Illinois College of Medicine at Urbana-Champaign proposes to extend the Urbana campus fiber-optic backbone to Carle Foundation Hospital, its primary teaching hospital, thus providing Internet connections for university faculty, staff, and students at the hospital. Funds are requested to cover a major portion of the cost of equipment and services necessary for this extension. A major benefit of this project will be the establishment of a huge virtual medical library, with information from around the world rapidly accessible to university faculty, staff, and students at the Carle and the campus departments of the University of Illinois at Urbana. Several of those make use of magnetic resonance imaging techniques and the analytical resources available at the National Center for Supercomputing Applications, and the Biomedical Magnetic Resonance Laboratory located on the Urbana campus. A high-speed link between Carle and the university campus would greatly facilitate data and image transfer. Third, the Carle Foundation Hospital and Clinics serve as a major consultative resource for physicians in the diagnosis and management of disease, being particularly active in the area of rural health care. Connection of Carle Foundation Hospital with the University of Illinois network would provide the final link between Carle's outlying clinics in rural areas and the Internet, opening the door to electronic world-wide collaboration in studies on the management and treatment of disease. ***